Generation and Evolution of Astrophysical Magnetic Fields (Astronomy)

This research concerns the generation and evolution of magnetic fields in astrophysical environments. The effects of partial ionization on dynamo models of the galactic magnetic field and of pregalactic magnetic field amplification will be investigated. This work will build upon a preliminary exploration of these effects by Dr. Zweibel. The formation of electric current sheets or filaments in the magnetic fields of stellar coronae with consequences for heating of the coronal gas will also be studied. This area too has been of longstanding interest to several principal collaborators at the University of Chicago: A. Konigl, E. Parker, and R. Rosner. In addition to research activities, Dr. Zweibel will teach graduate courses in her specialty (Fluid and Plasma Dynamics I or II, Special Topics in Plasma Astrophysics), participate in Theoretical Astrophysics and Faculty Research Seminars and in the regular Astronomy and Astrophysics Colloquium Series, and deliver guest lectures to undergraduate classes in Physical Science. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.